ABR: Mantle Circulation Models: Development and Application to Geophysical and Geochemical Observables

The proposed work will develop and use models of mantle flow and
convection to understand the state and evolution of the solid earth.
The work will include studies of mantle plumes and hotspots; plumes
provide an indicator of mantle flow throughout the depth of the
mantle, and recent seismic observations of plumes will allow a direct
comparison of models of mantle flow with observation of plumes that
are moved and distorted by mantle flow. These results will also be
important for understanding hotspot tracks and plate motions, as well
as flow in the mantle. The work will also address the motions of
subducted material and other heterogeneities in the mantle, and will
relate them to geochemical signatures of heterogeneity in the mantle.
This will build upon recently developed statistical models of the
development and evolution of mantle heterogeneity, and will provide a
means of relating observed geochemical evidence of heterogeneity with
dynamical processes in the mantle. Further development of flow and
convection models will be done to deal more realistically with
thermal convection and mantle rheology. Recent developments for
inversion of models will be applied in order to better constrain our
conclusions. Since the models predict a range of geophysical
phenomena (including the geoid, plate motions, polar wander) the
results of the model studies will be systematically applied to these
other phenomena.

The work will relate the dynamic processes of flow and convection to
the emerging seismological pictures of mantle structure, as well as
to the geochemical evolution of the Earth. This will allow a more
unified view of the workings of the Earth's interior on both short
and long time scales. The work will involve the training of graduate
students, and will also develop numerical models that will be
available to other researchers. The results of the work will have
broad implications for understanding the dynamics and evolution of
the Earth, and will relate dynamical, tectonic and geochemical views
of the evolution and working of the Earth system, which represents an
extremely active area of earth science research.